Collaborative Research: Building a Life Science Curriculum for Elementary Teachers

Biological Sciences (61)

Chico State, Western Washington University and Whatcom Community College are collaboratively developing and testing 15-weeks of life science learning materials for prospective (K-8) elementary teachers. This curriculum is based on a previously designed ten week course entitled "Investigating the Flow of Matter and Energy in Living Systems" that has already been adopted by several schools. Using a constructivist, inquiry-based approach, each unit begins with an assessment of students' prior knowledge and ends with a reflection comparing their initial ideas and their new scientific understanding. Students are encouraged to structure their own learning with the hopes they will adopt both student-centered pedagogy and the constructivist approach to curriculum development in their teaching.